Quantum Coherence in Superconduction and Normal Systems

9805613 Ambegaokar Theoretical research will be conducted on (i) the superconductivity of disordered wires, including the resistive transition and the explicit role of the electron- phonon interaction and disorder in the suppression of superconductivity; (ii) anomalies in the resistive behavior of normal and supeconducting point contacts; (iii) techniques for calculating the properties of inhomogeneous disordered superconducting systems; and (iv) the loss of quantum coherence in disordered mesoscopic systems. %%% Theoretical research will be conducted on (i) the superconductivity of disordered wires, including the resistive transition and the explicit role of the electron- phonon interaction and disorder in the suppression of superconductivity; (ii) anomalies in the resistive behavior of normal and supeconducting point contacts; (iii) techniques for calculating the properties of inhomogeneous disordered superconducting systems; and (iv) the loss of quantum coherence in disordered mesoscopic systems. ***